ICP for an Interdisciplinary Environmental Science Program at Colorado College

Colorado College proposes to strengthen offerings in a new interdisciplinary environmental science program by adding an inductively coupled plasma spectrometer (ICP) to the current equipment used to teach environmental courses in the chemistry, geology, economics, and biology departments. Faculty in a variety of departments have created new courses and improved existing courses to meet student demand for environmental science education. The next step in providing a substantive curriculum for these students is to strengthen the quantitative analysis components of environmental course offerings. The proposed ICP, because of its multicomponent analysis capabilities, is particularly effective for involving students in developing and evaluating various alternative models,as well as providing quantitative data. The ICP will be used by students in environmental courses in chemistry, biology, geology, and economics to analyze air and water for elemental pollutants, and plants and soils for nutrients and toxic metals, as well as investigate the bioaccumulation of heavy metals in food webs.Colorado College faculty believe strongly that the sciences should be taught as a laboratory or field experience in which models and theories are created to explain observations, and that the best laboratory teaching experiences contain a significant component of original research that allows students to become involved in the practice of science. Not only are students prepared for possible teaching, graduate, or industrial work, but non-science majors are exposed to the processes by which scientists arrive at the conclusions that impact all of our lives. Based on past experiences with other instruments at Colorado College we expect the ICP to further enhance the interaction between departments, both within the natural sciences and across to the social sciences.